Measuring Crustal and Moho Melt Beneath the EPR, 910 N, Using Seafloor Compliance

This project will study melt variations through the lower crust and Moho of the 9 degree north segment of the East Pacific Rise using 24 seafloor compliance measurements. The goals are to determine the variation of melt within the crust and upper mantle along a fast spreading ridge, to determine the scales of the variation and whether these variations correlate to morphological variations.